1,2-Diamination of Alkenes via 1,3-Dipolar Cycloadditions with Azimines

Dr. Robert B. Grossman of the University of Kentucky is developing new methods to prepare the large group of chemical compounds known as 1,2-diamines. Not only are 1,2-diamines ubiquitous in Nature, but they have also been used in catalysts of chemical reactions and as materials applicable to advanced manufacturing. One factor limiting their use in industry has been the difficulty of making these compounds from common precursors with inexpensive and safe methods. Dr. Grossman aims to make the synthesis of 1,2-diamines faster, safer, and cheaper than existing methods, accelerating the nation’s growth in prosperity and competitiveness. Dr. Grossman will also continue to organize ChemCamp, a weeklong hands-on chemistry learning experience for high school students that takes advantage of the new and attractive laboratory facilities at the University of Kentucky.

This proposal aims to develop a new method for the synthesis of 1,2-diamines from alkenes. To achieve this, azimines RN=N(+)(R)–N(–)(R), a group of 1,3-dipoles that have been mentioned in only three papers since it was first postulated in 1963 that they would undergo 1,3-dipolar cycloadditions, will be utilized. Recent advances in synthetic methodology have made it possible to prepare azimines in just a handful of steps from readily available, inexpensive starting materials. Azimines undergo stereospecific 1,3-dipolar cycloadditions to both electron-poor and electron-neutral alkenes to give substituted 1,2,3-triazolidines, and hydrogenation of the 1,2,3-triazolidines gives 1,2-diamines in which the N atoms bear easily removable protecting groups. This research project will advance our fundamental understanding of the scope of the 1,2-diamination reaction, with special attention to the intramolecular and asymmetric variants.